A Laboratory Approach to Calculus

College faculty are learning how computer algebra systems can be used to improve calculus curricula and are designing new curricula that will integrate laboratories into the new courses. The new designs will be implemented during the academic year following the workshop will be critiqued and redesigned at a follow-up workshop the next summer.